Differential Gene Expression and the Sphingomyelin Pathway

Abstract 9512979 Joseph The aim of this planning grant is to identify genes which are uniquely expressed in response to agents which activate the sphingomyelin pathway. The sphingomyelin is degraded to ceramide which then activates a protein kinase that is involved in the immune response, inflammation and apoptosis. In this proposal the technique of differential display reverse transcription polymerase chain reaction will be used to isolate the genes that are induced or altered in response to treatment with ceramide. These genes will then be amplified, cloned and identified. This research will attempt to identify the genes expressed in response to the activation of the sphingomyelin pathway, which in turn will permit further studies on the role of this path. ***